Planning Grant For Assessment And Improvement Of Alaska's Tribally-controlled College's Science, Mathematics, Engineering And Technology Programs

Ilisagvik College in Barrow, Alaska is the lead college in the Consortium for Alaska
Native Higher Education, Inc. (CANHE), a non-profit group of Alaska Native organizations
creating and supporting new Alaska Native-serving colleges in Alaska. CANHE was
established, in part, because only 4% of Alaska Natives (1990) have achieved
baccalaureate degrees. Alaska Natives are poorly represented as students in
Science, Mathematics, Engineering, and Technology (SMET) programs in Alaska's
universities and colleges, as teachers in the Alaska schools, and in the occupations
requiring these skills. Data on Alaska Native higher education achievement is not
well collected. It is obvious to Alaska natives, however, that different techniques
must be used to attract and retain Native and rural students in SMET programs than
those used for years by the state university. Ilisagvik will serve as the lead and
mentor institution for the planning and assessment effort over the10 months of
the project.

Ilisagvik will engage a project manager to conduct the assessment. A CANHE member
task force will create a mission statement defining the planning goals, priorities
and project milestones. An external advisory board will be chaired by Dr. Edna
MacLean, the president of Ilisagvik College, and will review the planning effort and
evaluate the progress. The task force and manager will gather data from each of the
six members and examine their missions, their long-term goals and priorities. The
regional needs and strengths will become part of the CANHE SMET master plan which
will include the colleges' resources, governance, culture, technology requirements,
and funding strategies. The plan will include assessment of faculty needed and the
skills available for staff instruction, and inventory the technology requirements
and the infrastructure support needed in each region. Beyond the specific benefits
of the assessment to Ilisagvik College, the benefits will multiply by involving all
the CANHE members in the process and the ultimate implementation of the plan.

The group will design practical cost-effective methods to create, expand and
collaboratively improve SMET programs for the dispersed potential student body
including collaboration with other regions, some centralizing support activities,
and integrating incentives to be involved for faculty and students. Given the vast
roadless distances between communities, the primitive state of rural Alaska
telecommunications and information infrastructure and the high cost of such
services when available, there are numerous problems of distance delivery to
be identified, understood and resolved.

Ilisagvik developed a new Information Technology A.A.S. curriculum and acquired
some of the infrastructure to carry out the classes through previous funding from
NSF, the American Association of Community Colleges, the M. J. Murdock Foundation,
and the Microsoft Corporation. Other programs are being developed by CANHE members.
These assets can be shared across the state to improve SMET delivery. Collectively
the colleges can register a greater number of students for these courses from the
multi-regional Native student body and deliver them with a smaller number of
faculty also taking administrative advantages of cross-registration benefits.
The data, assessment, and draft plan will be reviewed with the board and
organizational leadership of each regional colleges prior to adoption to affirm,
and modified if required, so that it addresses the needs, direction and resources
of each region.